Mathematical Sciences: Exotic Topology in Non-Pathological Dynamical Systems

This grant supports the research of Judy Kennedy. The goal of the research is to investigate the role of exotic topological sets in typical dynamical systems. There is much evidence that these sets occur frequently and unavoidable even in low dimensions. Chaos is a phenomenon that can occur in very simple dynamical systems that model many aspects of everyday life. The dependence of solution behavior on small changes in initial conditions and in parameters can profoundly influence expected outcomes.